A Universal Infant Hearing Screener

Current devices to screen the hearing of newborn infants are cumbersome to use, and consequently infants who are not expected to be at high risk for deafness generally do not get examined. This proposal is to develop a small and convenient data acquisition system that will allow the collection of auditory evoked potentials, which, when appropriately analyzed, will allow the discrimination between normal and hearing-impaired infants. The request is for the support of a specific graduate student; she has experience uniquely suited for the proposed task.